Shimura Varieties and Galois Modules

The principal investigator is working on the following two problems:
(A) He is attempting to describe integral models for Shimura varieties at primes
of non-smooth reduction. In particular, he studies ``local models" for PEL
Shimura varieties and their relation with affine flag varieties for infinite
dimensional groups, with symmetric spaces and with deformation spaces of
Galois representations.The motivation is to obtain information that can be used
in the calculation of the Hasse-Weil zeta function of these varieties and in
other arithmetic applications.
(B) He is studying the representations that appear in the cohomology of
arithmetic varieties with a group action.In particular, he continues his work
on developing fixed point formulas for calculating invariants of such (integral)
representations usingthe theory of cubic structures.

The investigator's research is in the field of arithmetic algebraic
geometry, a subject that blends two of the oldest areas of mathematics:
the geometry of figures that can be defined by the simplest equations,
namely polynomials, and the study of numbers. This combination has
proved extraordinarily fruitful - having solved problems that withstood
generations (such as ``Fermat's last theorem"). The investigator's work
mainly concentrates on the study of certain polynomial equations that
have many symmetries. There are connections with physics, the
construction of error correcting codes and cryptography.